Characterization of Aphid Nutrient Amino Acid Transporters with Focus on the Symbiotic Interface

Alexandra C. C. Wilson
Proposal # IOS-1121847
Characterization of Aphid Nutrient Amino Acid Transporters with Focus on the
Symbiotic Interface
Symbioses such as those between humans and their gut flora and the insect vector of
Chagas disease and its obligate bacterium are ubiquitous in nature impacting human
health, biodiversity and agriculture. Insects feeding on mammalian blood or plant sap
are united in their dependence on intimate symbioses with bacteria that nutritionally
compensate their hosts. While the nutritional bases of these symbioses are well
understood, the processes and structures that mediate the intimate interactions between
symbiotic partners have been neglected and remain uncharacterized. This project aims
to functionally characterize the processes and structures that mediate amino acid
exchange between aphids and their bacterial symbiont, Buchnera aphidicola. Buchnera live
within membrane-bound compartments inside aphid bacteriocyte cells. The membranes
of the bacteriocytes and the specialized compartments present a challenge to amino acid
exchange, a process vital to aphid survival. Specifically, this project focuses on studying
the molecules that transport amino acids across membranes at the aphid/Buchnera
interface. The investigators will experimentally determine the transport capability of
amino acid transporters and use microscopy to determine where these transporters are
found. Research and educational goals will merge in measurement of changes in
expression of amino acid transporter genes in response to dietary amino acid supply
providing inquiry-based research training for up to 96 undergraduates. Broadly this
work benefits genomic studies in all insect systems and additionally provides mentoring
and research training for one graduate student and one early-career researcher. This
project will be the first to functionally characterize the processes and structures
operating at the interface of an insect nutritional symbiosis. Importantly, understanding
how insects interact with their symbionts has the potential to facilitate development of
targeted environmentally safe control of insect vectors of human and plant disease.